EAGER: Efficient Monitor-Based Synchronization Mechanisms for Concurrent Programs

Programming multicore processors is a challenging task due to bugs resulting
from concurrency and synchronization. A fundamental reason for the difficulty
is that current programming mechanisms require programmers to manually
coordinate synchronization between threads running on these systems.
Consequently, concurrent systems are prone to bugs due to faulty
synchronization problems such as missing, wrong, or lost notifications for
threads. Moreover, these bugs are hard to find during testing because they may
appear only under a rare schedule of events. Current programming mechanisms
also limit the amount of concurrency in threads to ensure that a shared
variable is not updated by multiple threads. As a result, many concurrent
systems slow down due to sequential bottleneck of accessing shared variables.
This project is expected to fundamentally change the way synchronization
mechanisms (such as monitors) are written and implemented. It will lead to
better understanding of how conditions in a multithreaded program can be
evaluated efficiently. As a result, the concurrent programming systems will
become more reliable and faster. The impact on society is expected to be large
because all new systems are based on concurrent programs.

The project is developing new synchronization mechanisms with two fundamental
goals. The first goal is to make synchronization as simple and intuitive as
possible for programmers. Current (monitor based) synchronization
mechanisms require programmers to explicitly signal threads that may be waiting
on certain conditions. In the synchronization mechanism developed in this
project, there is no notion of condition variables and it is the responsibility
of the runtime system to automatically signal appropriate threads. Analogous
to automatic garbage collection in Java, the project is designing efficient
algorithms and techniques for automatic signaling. The project is
investigating techniques to deal with fairness and exploitation of runtime
information such as idle cores for effective and efficient automatic signaling.
The second goal is to increase the concurrency in implementation of monitor
without requiring programmers to do any additional work and without violating
the guarantee provided by the monitor that execution of its methods is
equivalent to one in which there is at most one thread in the monitor at any
time.

There is also a strong educational component for this project. Synchronization is a fundamental topic
in computer science education and is taught in all operating system courses. By
eliminating manual signaling from these courses, students would get more time
to focus on higher level concurrent programming concerns.